Travel Support for IEEE INFOCOM 2000 Conference; Tel Aviv, Israel; March 26-30, 2000

The IEEE INFOCOM Conference on Computer Communications will be held in Tel Aviv, Israel on March 26-30, 2000. This Preeminent technical conference is the primary venue for presenting new research results in the area of computer communications, and is widely attended by researchers and practitioners of graduate students, post-doctoral researchers, and faculty members.

Participants have the opportunity to present their work, attend panel and keynote sessions, and interact with hundreds of others performing leading-edge researchers in the field. This grant funds approximately twenty graduate students, post-docs, and junior faculty in the United States to attend this conference.